U.S.-Argentina Workshop on Analytical Chemistry: Buenos Aires, November 12-16, 1990

This award supports the First Buenos Aires Workshop on Analytical Chemistry to be held in Buenos Aires, Argentina from November 12-16, 1990. The organizer is Daniel Batistoni of the analytical chemistry department of the Argentine Atomic Energy Commission. The U.S. organizer is Ramon Barnes of the University of Massachusetts. The aim of this workshop is to bring together local and international scientists active in different fields of analytical chemistry. Exchange of ideas and discussions will be stressed between research units, government laboratories and industry. The program will include plenary lectures, invited oral presentations on selected topics, and oral or poster presentations of contributed papers. The workshop also includes discussion panels on specific subjects, four tutorial lectures, and a limited instrumental exhibition. It will stimulate the initiation of new professional contacts and long term associations between U.S. and Latin American scientists who share common research interests. The proposed research-oriented program is focused on modern topics in analytical chemistry including instrumental analysis techniques; flow injection and kinetic methods of analysis; quality assurance; toxicology, biological, and environmental analysis; and the analysis of materials. The workshop will promote scientific exchange and collaboration in the specific areas of advanced spectroscopic techniques for elemental analysis at trace and ultratrace levels as applied to the characterization of new materials; flow injection and kinetic methods of analysis, and quality control in analytical laboratories.